Action for Access

This model project includes, in the first year of operation, several activities to strengthen minority education at the precollege level and to improve the transition of Native Alaskan students into college and university. It was developed under the leadership of the University of Alaska with the cooperation of the school systems in Alaska, Native organizations and corporations, industry, and State Agencies. During the first year, a set of activities based on science and mathematics experiences, and designed to nurture, encourage and motivate minority students, are being implemented. These consist of a one-year sequence of four phases to prepare students in precollege mathematics, science, and study skills by providing instruction in mathematics and science as well as incorporating internships and science research projects specifically related to Native and rural activities in Alaska. The four phases are: five-weeks of intensive academic instruction at the University of Alaska, including an introduction to biology, chemistry, basic mathematics, and a seminar on culture, ideas, and the values of science; distance delivery instruction in which academic coursework will be continued by delivery to students' home sites; a return to the campus for further laboratory experience; and, a career counseling support activity to encourage enrollment in college-level science courses. Plans for the second year will include science and mathematics activities at the undergraduate level.